Fibred 3-manifolds and beyond

DMS-0312442
Rachel Roberts

Professor Roberts will investigate several problems concerning the

topology of 3-manifolds. In particular, she proposes investigating

a series of questions suggested by her earlier work (joint with

John Shareshian and Melanie Stein) demonstrating the existence of

infinitely many hyperbolic manifolds containing no Reebless

foliation. She also proposes a study of particular Reebless

foliations and essential laminations as part of her proposed

approach to proving the truth of the property P conjecture for

knots, which says that no counterexample to the Poincar\'e

Conjecture can be generated by Dehn surgery on knots.

Three-manifolds are spaces formed by gluing together blocks of

three-dimensional space according to certain prescribed rules.

Globally, the spaces obtained are usually quite complex. These

spaces arise naturally in many contexts in the physical and

natural sciences and model many interesting phenomena. As an

example of this, we note the recent joint research of topologists

and cosmologists suggesting a perhaps surprising model for our

spatial universe. As another example, the study of 3-manifolds is

important in the study of the knotting and linking of strings in

three-dimensional space, which in turn is important in the study

of the structure of DNA. A primary goal of the study of

3-manifolds is to discover a useful description of all such spaces

and to develop useful tools for working with them. In this

research, Professor Roberts investigates questions related to this

goal.